Design in Biomedical Engineering Curricula

9419608 Winters This proposal from Catholic University requests partial support to conduct a workshop that address strategic topics related to biomedical engineering curriculum development. The purpose of the workshop is to enhance the knowledge and capabilities of biomedical engineering faculty and to improve the quality of the educational experience for undergraduate biomedical engineering students. Engineering education is undergoing significant revamping, and much of the curricula innovation that is occurring is tied to the area of engineering design. This workshop will bring together biomedical engineering faculty who teach courses involving biomedical engineering design, as well as key outside experts in engineering design to share insights and experiences with the participants. The second objective of the workshop is to use it as a mechanism to create a BME Undergraduate Design Resource Guide. Participants to the workshop will provide resource material, and the resulting guide will be distributed to all participating institutions. ***